Unravelling Magmatic Processes in Continental Margin Arcs: Evidence from Comagmatic and Crustal Inclusions

This study proposes to extend work on processes and sources of continental margin magmas, with particular reference to the central Andes (volcanic) and Sierra Nevada (plutonic) provinces. Focussing on the inclusions will allow the PIs to: 1) better constrain the compositions of magmatic and crustal components; 2) evaluate timescales of contamination by examining the length scales over which isotopic equilibration of included material has occurred; 3) better estimate the composition of the mantle source to continental margin magmas - in particular whether the lithosphere or asthenosphere is the predominant source; 4) mass balance the contributions of crustal versus mantle-derived components to evaluate the extent of intra-crustal recycling. As a result, a much better understanding should be gained of the processes affecting magmatic composition in continental-margin arcs.